A Regional Teacher Enhancement Program for High School Teachers of Chemistry at the 13th Biennial Conference on Chemical Education

9353403 Crosby This project, sponsored by the Division of Chemical Education, Inc., will provide workshops for 100 teachers in the Lewisburg, PA area in conjunction with the 13th Biennial Conference on Chemical Education. The teachers will be provided special workshops concerning the latest techniques in laboratory and demonstration activities and will then participate in follow-up workshops to assure that new materials and techniques are implemented in the classroom.